2026 Gordon Research Conference on Tribology: Transformative Impact Across Disciplines; Lewiston, Maine; 26 June to 3 July 2026

This award supports participation in the 2026 Gordon Research Conference (GRC) and Seminar (GRS) in Tribology. Tribology is the science of friction and wear at the sliding contacts. Research and engineering efforts in tribology address the physical and chemical mechanisms underlying friction and wear and aim to design materials, processes, and devices such that new solutions to technological challenges become available. Advances in tribology help to reduce energy consumption by lowering friction, prolong the lifetime, enhance the safety of mechanical systems by reducing wear, and decrease harmful emissions in applications from vehicles to manufacturing through the reduction of energy use. Tribology also impacts the life of humans and animals that move on earth. The GRC on Tribology is a forum to exchange results of cutting-edge research amongst an interdisciplinary group of scientists and engineers who are at the forefront of addressing fundamental and applied challenges in this field. This award supports the participation of students and early-career researchers at the GRC and GRS.

The subtitle, “Transformative Impact Across Disciplines” reflects the idea that promoting scientific progress, advancing national health, prosperity, and welfare, and securing national defense in topics involving tribology requires knowledge that spans classical fields of science and engineering including chemistry, physics, mechanical engineering, and materials science—to other fields like food, health, earthquake physics, electronics and additive manufacturing. Most tribologists are trained in one of these disciplines and then exposed to other fields as they transition from academic training to real-world challenges. Recognizing the inherently multidisciplinary and multiscale nature of tribology, the next significant breakthroughs are likely to emerge at the intersections of fields, which is the focus of the 2026 Tribology GRC, with sessions that bring together tribology with another research/engineering/scientific field. The 2026 GRC on Tribology invites scientists and engineers from all disciplines to discuss and debate the forefront research questions in the field from different angles. The exchange of results and ideas happens through invited talks given by leading scientists and extended discussions around contributed posters. The scientific discussion of interplays among various mechanisms over different length scales is expected to lead to breakthroughs in the understanding of the interfacial phenomena leading to friction and wear. The GRC is preceded by the GRS which gives young tribologists the opportunity to present their work to their peers in an unintimidating atmosphere, prepare themselves in tutorial lectures for the GRC, and build networks with colleagues.